Use of a Tutoring Architecture for Programming to Promote Transfer and Problem Solving

The PUPS Tutoring Architecure enables exploration of new issues involving the tutoring of introductory programming courses. Its unique features are that it allows one to tutor any programming language and its performance is not significantly affected by the complexity of the program that is being tutored. The proposal is concerned with three different applications of the PUPS Tutoring Architecture. The first concerns increasing the low level of transfer from a first programming course to other programming languages. The effectiveness of simultaneous instruction in multiple languages and the use of data-flow representations to plan algorithms will be explored. Research under this topic will explore issues of how to get students to represent knowledge in a transferrable way. Thus, this research has implications well beyond transfer across programming languages. The second topic concerns use of the architecture to tutor larger programs. Here the concern is both with transfer between a subject domain like mathematics and programming and with issues intrinsic to larger programs such as data structures and algorithm efficiency. The goal here is to begin to understand the relationship between an introductory course and other intellectual activities it is supposed to facilitate. The third application concerns developing training material and utilities to facilitate use of the tutoring architecture by non-Al specialists. A tutor will be developed for use of the production system core of the tutor and a set of authoring aides. This system will be tested with local teachers of introductory programming courses.//